CAREER: Efficient Multiplexed Classical Interfaces for Scalable Cryogenic Quantum Processors

Quantum computing has the potential to revolutionize industries such as cryptography, pharmaceuticals, and finance by solving complex problems that are beyond the capabilities of classical computers. However, scaling quantum processors to control and read out thousands or even millions of qubits is a significant challenge due to limitations in current technologies, such as the use of bulky coaxial cables and inefficient control systems. This project aims to overcome these barriers by developing innovative, energy-efficient, and scalable interfaces for cryogenically cooled quantum processors. By addressing the input/output bottleneck, the project seeks to accelerate the development of quantum processors, bringing us closer to achieving quantum supremacy and enabling transformative advancements in computing, secure communications, and sensing technologies. The project also includes an education and outreach plan to engage high school and undergraduate students, modernize curricula, and create open-source software to broaden participation in quantum-related research. These efforts aim to address the critical need for skilled professionals in quantum technology and microelectronics, ensuring the U.S. remains a global leader in these fields.

The project focuses on designing and demonstrating three key innovations for scalable cryogenic quantum systems. First, it will develop multiplexed all-passive photonic ingress interfaces using wavelength-division multiplexing (WDM) systems and cryogenic receivers to directly control qubits with minimal heat load and high energy efficiency. Second, it will create photonic ingress data links for hybrid integration with novel qubit controllers, enabling efficient delivery of digital signals and reducing memory access overhead. Third, it will design sub-THz dielectric-waveguide-based egress interfaces for multiplexed qubit readout, leveraging low-loss polymer-based waveguides to upconvert readout signals to sub-THz carriers for scalable data transmission. The project will utilize advanced semiconductor fabrication technologies and will integrate cryogenic and room-temperature systems for full demonstrations. These innovations promise to set new benchmarks for scalable qubit control, transforming quantum computing and enabling its widespread adoption across industries.